LIMSport Workshops: Promoting Cost Effective Implementation of Computer Data Acquisition and Reduction in Chemistry Laboratories

9353939 Vitz Two six-day workshops for undergraduate general chemistry teachers will introduce participants to the LlMSport program, a cost-effective implementation of computer data acquisition and reduction in the laboratory. LlMSport allows direct data acquisition into a spreadsheet. Since standard hardware and software (Lotus 1-2-3) are used, both the program and the individual student experiments are easily shared. Faculty will have hands-on experience with interfacing and an opportunity to adapt laboratory experiments to the LlMSport format. ***